U.S.-FSU Seminar on Logic (Tver University, Russia: July 20-24, 1992)

The primary objective of this US-Russia project between Dr. Anil Nerode of the Mathematical Sciences Institute at Cornell University and Dr. M. A. Taitslin of Tver University is the organization of a conference on the logical foundations of computer science. The conference will bring together specialists in theoretical computer science and related logical disciplines from many countries with the hope of stimulating the interface of logic and computer. This project is mathematics fulfills the program objectives of advancing scientific knowledge by enabling leading experts in the US and Russia to combine complementary efforts and capabilities in areas of strong mutual interest and competence on the basis of equality, reciprocity, and mutuality of benefit.//